Industry/University Cooperative Project: Liquid-Liquid- Vapor Phase Equilibria Behavior in Rich Gas + Hydrocarbon Mixtures (PUI)

An experimental study is conducted of the phase equilibria behavior of selected ethane + hydrocarbon binary and ethane + propane + hydrocarbon ternary mixtures, which can contribute to the understanding of the phase equilibria behavior of rich gas-enhanced oil recovery systems. Vapor-liquid, liquid-liquid-vapor, and solid-liquid-vapor phase equilibria of binary mixtures of ethane + n-paraffins and ethane + n-alkylbenzenes are studied. Also, the vapor-liquid and liquid-liquid-vapor phase equilibria of a ternary mixture of ethane + propane + n-paraffin are studied to evaluate how liquid-liquid-vapor phase behavior can occur in an appropriate solvent mix of ethane + propane for a hydrocarbon which is not liquid-liquid-vapor immiscible with either solvent species. The studies are performed with a visual cell apparatus in the temperature range of 0 to 125;soC at pressures up to 1500 psia.